Chlorinated Poly (Vinyl Chloride) with High-Performance Properties and the Detection of Labile Structures in Vinylidene Chloride Polymers

9610361 Starnes The proposed research is directed toweard the ultimate goal of obtaining useful polymers with superior properties. Two parallel projects are envisaged. They are related in the sense that both are concerned with chlorinated polymers and with free-radical chemistry. One project deals with the preparation of new forms of chlorinated poly(vinyl chloride) (CPVC) having unusual physical properties that should make these resins excellent candidates for utilization as high performance materials. In this context, a specific synthetic target is poly(1,2-dichloroethylene)(PDCE), whose glass transition temperature has predicted to be much higher than those of the current commercial CPVC's. Approaches to the preparation of PDCE and other new CPVC's will include (a) the chlorination of poly(vinyl chloride)(PVC) with molecular chlorine in the presence of various solvents that can complex chlorine atoms, (b) the chlorination of PVC with other reagents whose selectivities are unusual, and ( c) synthesis by alternative routes in which no substantive chlorination occurs. This work will be extended eventually to the preparation of other new chlorine-containing polymeric materials. The other project is designed to identify and enumerate the anomalous (defect) structures in vinylidene chloride polymers (PVDC's) and to elucidate the mechanisms by which these structures are formed during polymerization. Particular attention will be paid to thermally labile structures, because their mechanisms of formation may suggest ways of modifying the polymerization procedures in order to create polymers whose stabilities are greatly enhanced. %%% This research could lead to the preparation of important new materials that are very useful technologically and are in the family of polymers that contains PVC, the world's second most widely used thermoplastic. The work also will make a major contribution to science education by training advanced researchers and by all owing Chemistry students at one of the nation's premier undergraduate schools to do research in a frontier with an internationally recognized group. ***